Adding Gas Chromatography-Mass Spectrometry to Chemistry and Environmental Chemistry Laboratories

The main goal of this project is to improve instruction in Organic Chemistry, Environmental Chemistry, and Analytical Chemistry by adding gas chromatography-mass spectrometry instrumentation to the laboratory component of these courses. Specifically, the new system enables students to acquire mass spectral information on compounds and mixtures they are using in the laboratory rather than merely to learn about mass spectrometry from text and computer exercises. In addition to its uses in Organic Chemistry, Analytical Chemistry, and Environmental Chemistry courses, it also is being used for introductory experiences in freshman level courses for majors as well as non-majors. The automation included in the instrument speeds data collection and makes it possible for students to gain valuable experience in computer searching of spectral data bases using mass spectral data for identification as well as using the spectral interpretation tools to assist in determining the structure of an unknown compound. In addition, the instrumentation is being used in a student-manned environmental analysis laboratory that is supporting courses in a new environmental science program and facility.